Development of Recombinant RNA Technology

Jarrell 9400562 Restriction enzymes typically recognize and cleave specific DNA sequences that are 4 to 6 basepairs (bp) in length. However, only a small subset of the 4096 possible bp sequences present in DNA are recognized by restriction enzymes. In addition, commercially available restriction enzymes are often of poor quality; the preparations are impure and the enzyme concentration is low. This proposal seeks to develop recombinant RNA technology making use of ribozymes that can cut and join RNA molecules to serve the functions currently served by restriction enzymes and ligase. Potentially, 4096 different ribozymes, each with a particular 6 nucleotide (nt) sequence specifically, can be generated. All of the ribozymes will be generated and purified by the same method and each will function in the same reaction buffer. Thus, it should be possible produce inexpensive ribozymes of consistently high quality. This technology will significantly improve our ability to generate recombinant DNA molecules. The recombinant molecules will be generated at the RNA level using in vitro trans splicing catalyzed by self splicing group II intron sequences. These recombinant RNA molecules will be copied into DNA by reverse transcriptase and amplified by the polymerase chain reaction (PCR) to yield the recombinant DNA molecules. This research will determine the feasibility of recombinant RNA technology as a practical tool for nucleic acid manipulation. Group II introns are capable of splicing together exons in vitro (Peebles et al 1986). This reaction is autocatalytic. As shown in Figure 1, the intron catalyzes its own removal from a precursor RNA. The two sequences to be joined (exons 1 and 2) are represented by rectangles. The intron consists of six conserved structural domains that are numbered sequentially. %%% Molecular Biology relies upon recombinant DNA technology to manipulate and clone DNA molecules. Restriction enzymes and ligase are used to specifically cleave and join DNA molecules. This technology is so widely used that we seldom consider its limitations. Restriction enzymes typically recognize and cleave specific DNA sequences that are 4 to 6 basepairs (bp) in length. However, only a small subset of the 4096 possible 6 bp sequences present in DNA are recognized by restriction enzymes. In addition, commercially available restriction enzymes are often of poor quality; the preparations are impure and the enzyme concentration is low. This proposal seeks to develop recombinant RNA technology making use of ribozymes (RNA catalysts) that can cut and join RNA molecules to serve the functions currently served by restriction enzymes and ligase the enzyme that joins nucleic acid fragments. Potentially, 4096 different ribozymes, each with a particular 6 nucleotide (nt) sequence specificity, can be generated. All of the ribozymes will be generated and purified by the same method and each will function in the same reaction buffer. Thus, it should be possible to produce inexpensive ribozymes of consistently high quality. This technology will significantly improve our ability to generate recombinant DNA molecules. The recombinant molecules will be generated at the RNA level in vitro and then copied into DNA by the enzyme reverse transcriptase that can copy RNA molecules into DNA and amplified by the polymerase chain reaction to yield the recombinant DNA molecules. This research will determine the feasibility of recombinant RNA technology as a potential tool for nucleic acid manipulation. Group II introns are capable of splicing together exons in vitro (Peebles al. 1986). This reaction is autocatalytic. As shown in Figure 1, the intron catalyzes its own removal from a precursor RNA. The two sequences to be joined (exons 1 and 2) are represented by rectangles. The intron consists of six conserved structural domains that are numbered sequentially.